CAREER: High-speed Electrophoretic Imaging of Biological Microenvironments

This Faculty Early Career Development (CAREER) project, supported in the Analytical and Surface Chemistry Program, focuses on the development of high speed separation techniques with high sensitivity detection strategies to study neurotransmitter release from single cells. Professor Shear and his students at the University of Texas-Austin will fabricate a novel, multichannel capillary electrophoresis array for the rapid sampling and separation of excreted neurotransmitters. Multiphoton-excited fluorescence can be generated from extremely small (sub-picoliter) volumes to provide high sensitivity while retaining chromatographic integrity. This combination will allow the monitoring of neurotransmitter release across the 'landscape' of a single cell. This CAREER research project will expose undergraduate students to modern research laboratory instrumentation and illustrate the utility of the approaches through the analysis of `real world` samples. Professor Shear will combine fundamental aspects of chemical instrumentation in his lectures with hands on problem solving in the laboratory. One of the long standing issues in the area of neurochemistry has been the desire to observe neurotransmitter release on the single-cell level in real time. Professor Shear and his students at the University of Texas-Austin, are developing monitoring techniques based on the combination of a novel capillary electrophoresis array and high sensitivity optical spectroscopy methods. Instrumentation having the capabilities to monitor individual neurotransmitter releases across the surface of a cell would impact a number of disciplines. The multidisciplinary aspects of the instrumentation development portion of this project are complemented by Professor Shear's interest in introducing undergraduates to state-of-the-art research instrumentation for solving `real world` analytical problems which may have a high degree of complexity. ┤Á╝À╝/┤┐/¥Á ¢│╣Á>│Á │%/¢¢Á¢ ½Á_╣│?>┤┐│¥?╝ >/>?║/╝¥╣│%Á¢ /╝Á /> ╣_║?╝¥/>¥ │%/¢¢ ?Â >Á ┴ _/¥Á╝╣/%¢ ¼©Á` ?ÂÂÁ╝ ┐>╣╗┐Á ?║║?╝¥┐>╣¥╣Á¢ ¥? ¢¥┐┤` Â┐>┤/_Á>¥/% ║╝?▓%Á_¢ ╣> ¥©Á ╣>¥Á╝┤╣¢│╣║%╣>/╝` /╝Á/¢ ?Â │©Á_╣¢¥╝` ║©`¢╣│¢ />┤ _/¥Á╝╣/%¢ ¢│╣Á>│Á /¢ ┴Á%% /¢ _/>` ║?¥Á>¥╣/% /║║%╣│/¥╣?>¢ ¢┐│© /¢ ¢?%/╝ Á>Á╝À` │?>└Á╝¢╣?> ┴/¢¥Á ┤ÁÀ╝/┤/¥╣?> />┤ >/>?Á%Á│¥╝?>╣│¢ ¼©Á ┤Á¥/╣%Á┤ ┐>┤Á╝¢¥/>┤╣>À ╝Á¢┐%¥╣>À Â╝?_ ¥©Á¢Á ¢¥┐┤╣Á¢ ┴╣%% ©/└Á /> ╣_║?╝¥/>¥ ╣_║/│¥ ?> ¥©Á /║║%╣│/¥╣?> ?Â ¢Á_╣│?>┤┐│¥?╝ >/>?║/╝¥╣│%Á¢ ╣>│Á ¥©Á ║╝?│Á¢¢Á¢ ¥? ▓Á ¢¥┐┤╣Á┤ ┤Á¥Á╝_╣>Á ¥©Á ÁÂÂ╣│╣Á>│` />┤ ¥©Á │©Á_╣│/% ¢¥/▓╣%╣¥` ?Â />` ┤Á└╣│Á¢ _/┤Á Â╝?_ ¢┐│© >/>?║/╝¥╣│%Á¢ ¬Á¢┐%¥¢ Â╝?_ ¥©╣¢ ¢¥┐┤` ┴╣%% /%¢? /┤┤ ¥? ¥©Á ÀÁ>Á╝/% ┐>┤Á╝¢¥/>┤╣>À ?Â ¥©Á ┤`>/_╣│¢ ╣> ¥©Á ¢?%╣┤ %╣╗┐╣┤ ╣>¥Á╝Â/│Á ┴╣│© ╣¢ Á¢¢Á>¥╣/% Â?╝ ¥©Á ┤Á¢╣À> />┤ /║║%╣│/¥╣?> ?Â _/>` ╣_║?╝¥/>¥ ┤Á└╣│Á¢ />┤ ║╝?│Á¢¢Á¢ ¢┐│© /¢ ¥©Á ¢?%/╝ │Á%% Á%Á│¥╝?│©Á_╣¢¥╝` />┤ ©Á¥Á╝?ÀÁ>Á?┐¢ │/¥/%`¢╣¢